An Alternative Approach to Action Planning and Temporal Reasoning

Much AI work in planning uses deduction to draw conclusions about the future, so that the inferences work forwards in time from preconditions to consequences of actions. This project is developing an alternative approach in which the direction of reasoning is independent of temporal direction, so that information may have onsequences in the past or in the futre. It is based on an ontological framework of pieces of space-time with 'natural' boundaries. The role of inference is also somewhat different; its purpose here is to provide an efficient source of explanations' for apparent anomalies in tentative partial plans. Planning - even if only of a simple kind - is of central importance in many AI applications, but has suffered from some stubborn theoretical difficulties; this lternative approach seems to provide a solution to the 'frame problem' and the 'prediction problem', both of which can be seen to arise from identifying temporal direction with direction of inference.